Evaluation of Los Angeles' Organization & Plan for Recovery and Reconstruction

9416416 Mader This project is being funded as part of the National Earthquake Hazards Reduction Program's investigation into the causes and effects of the January 17, 1994 Northridge earthquake. The objective of the project is to evaluate the effectiveness of the City of Los Angeles Recovery and Reconstruction Plan as a guide to city actions after the Northridge earthquake. As part of the evaluation, the project team will explore the roles of the city's departments, agencies, and ad hoc organizations created specifically to assist recovery, and the value of ordinances and procedures prepared in advance for immediate implementation after the earthquake. Actions pertaining to long-term recovery and rebuilding will be emphasized, but the team will also look at the impact of the plan on emergency response. ***